Telecommunications and Signal Processing Laboratory Improvement

The undergraduate electrical engineering education in the areas of digital and analog signal processing, digital and analog telecommunications, fiber optics systems, and satellite communications systems is enhanced with the development of a comprehensive telecommunications and signal processing laboratory to provide students with hands-on test and design experience. By sharing expensive equipment among these related disciplines, maximum cost effectiveness is being achieved. The laboratory will comprise five stations consisting of equipment for signal generation (function, RF, optic), processing (filters, mixers, etc.), and analysis (oscilloscopes and spectrum analysis), together with a microcomputer for high- speed data acquisition and digital signal processing capabilities. A total of nine interdisciplinary junior and senior courses benefit by way of demonstrations, experiments, and design projects. The knowledge which will be reinforced by this laboratory ranges from an understanding of fundamental frequency-domain concepts to more advanced concepts in digital filtering, signal modulation, fiber optics, and satellite communications.